Middle-school Mathematics through Applications Project II: The Comprehensive Program

9452771 Goldman This project, Middle- school Mathematics through Applications Project 11 (MMAP 11), builds on and is a continuation of the original MMAP. This project will result in a comprehensive, three-year mathematics program for grades 6-8. The goals of MMAP 11 include: (1) The development of materials to create a complete mathematics program that could serve all 6th through 8th graders regardless of prior skills or ability levels. (2) The provision of resources, materials, and guidance to mathematics educators to help them assemble MMAP materials into a coherent, customized, and affordable curriculum to meet local needs. (3) The creation and compilation of guidelines and activities to help teachers identify and systematically evaluate mathematical competencies and mathematics embedded in students' work. and (4) The galvanization of a community of mathematics educators, researchers, and mathematics-using professionals to collaborate in identifying the needs and means necessary for developing additional MMAP materials. These goals will be achieved by using an interactive, cyclical research and development process created and piloted in the previous project. This project creates innovative software and investigations to simulate real world problems that rely on mathematical concepts and skills to solve. ***